Particle Export during the Southern Ocean Iron Experiment (SOFeX)

ABSTRACT

OCE-9987501

While it has been shown that the addition of Fe can stimulate phytoplankton growth and alter upper ocean biogeochemistry, little is know about the net effect of Fe availability on sinking particle fluxes. If Fe played an important role in past variations in CO2 or if there will be long term effects of Fe on CO2 due to deliberate manipulation of ocean ecosystems, then it becomes essential to quantify the net change in export fluxes of carbon and associated elements in response to Fe loading. For this reason, the PI will quantify changes in particulate organic carbon and particulate organic nitrogen export during the Southern Ocean Iron Experiment (SOFeX) using the naturally occurring radionuclide thorium-234. Using time-series profiles of 234Th obtained both inside and outside of the SOFeX study area, the PI will be able to study the export response to changes in Fe loading and community structure, as well as assist in the calculation of the carbon and nutrient fluxes in response to the Fe additions. Information on the export response of the upper ocean to Fe enrichment will be used to understand past oceanic responses to Fe/dust inputs and assess future impacts of deliberate Fe fertilization proposed to offset carbon dioxide emissions.